Information Abundant Interfaces: Advanced Organization and Coordination

The information-abundant user interface approach consists of two complementary parts: organization and coordination of information. Users can semantically organize complex information according to roles and relationships. Pieces of information are accessible with partial knowledge of nominal, spatial, temporal, and visual attributes. Users can explore semantic inter-relationships between pieces of information and navigate large information spaces by specifying custom coordinations between multiple filtered views. The research focus is on semantic visualization and task-oriented interaction. The main contributions of this project will be an improved understanding of psychological processes, a taxonomy of user tasks, notations for describing multiple window coordination, and new user interface techniques for information organization and coordination.